CAREER: Representations, Tools, and Services for the Complete Integration of Software Development Documents

9734102 Large software projects produce many documents of many different types that, together, describe the plans for, implementation of, and experience with the program. Ensuring that these documents do not have serious conflicts with each other is a critical task in any real software system, but requires a level of integration among the different types of software documents that is not possible with current development tools. This research project is working to identify the document representations, software tools, and user interface services that are required to integrate program source code and all other software documents into a seamless, interconnected whole. The project is producing a prototype development environment that allows arbitrary multimedia documentation and hyperlinks inside program source files and additional tools for managing and understanding the relationships between software documents. This research is significant because it is breaking down the barriers that currently exist between program source code and the natural language documents that motivate, evaluate, and explain it. The educational component of this CAREER project seeks to attract students from underrepresented groups to the study of computer science through outreach and a summer program curriculum and is also enhancing the department's software curriculum through new graduate course offerings. ***